Prediction of the Seasonal Climate Anomalies Over Eastern Africa

Abstract ATM-9424289 Semazzi, Fredrick H. North Carolina State University Title: Prediction of the Seasonal Climate Anomalies Over Eastern Africa The primary objective of this grant is to develop a numerical modeling system for predicting the onset, intensity and withdrawal of seasonal rains over East Africa. For this purpose, high resolution nested grid model simulations will be conducted and through an international cooperative arrangement such a prediction system will be tested and refined against the seasonal forecasts issued by the Drought Monitoring center, Nairobi. This project is important to understand and predict the climate fluctuations over a number of East Africa countries such as Burundi, Ethiopia, Kenya, Rwanda, Somalia, Uganda and Tanzania and to assess their possible impacts.